Design and Implementation of High-Productivity Programming Systems

Exploring techniques which increase the power and efficiency of object-oriented languages is the focus of this project. The design and implementation of Cecil (a multiple-dispatching, object-oriented programming language) will play a central role in this research. In particular, programs which manipulate complex data structures will be optimized.